Contemporary Issues in Textile Sciences - A New Approach to an Introductory Course

This project will develop a new introductory course in textile science. It will introduce students to the innovative technological aspects of this discipline through a discovery- oriented approach to product development and manufacturing processes. Besides applying the principles of science and engineering to successful business products, legal, marketing and environmental aspects necessary to the realization of a successful product will be covered. Through the use of hands-on investigative techniques, a research and design team approach, field trips to manufacturing facilities, lectures by industry experts, and discussions of patents and other legal issues, students will be introduced to an industry that needs graduates in science and engineering.